Group Travel to Third International Legume Conference; RoyalBotanic Gardens, Kew, England; July 12-17, 1992

The Leguminosae (legume or bean family) is the third largest family of flowering plants, and includes many species of economic and scientific importance (beans, pea, soybean, etc). Study of the systematics, ecology, and other aspects of biology in this family has been enhanced and facilitated by the existence of an international group of multidisciplinary workers, who have shared their diverse interests and expertise in a series of international conferences. The Third International Legume Conference (LC-3), "Evolution of the Leguminosae", is to be held at the Royal Botanic Gardens, Kew, England, from July 12-17, 1992. This project requests funding to assist speakers, poster presenters, and other participants in ILC-3 from the United States to attend the Conference. Priority in funding is to be given to younger researchers who might otherwise be unable to attend this valuable meeting.